Virtual Interactive Construction Education (VICE-Bridge): A Project-Based Educational Paradigm using Cyberinfrastructure Tools

To remain competitive, the construction industry in the U.S. requires a highly-trained and diverse workforce. The Virtual Interactive Construction Education project uses cyber-infrastructure tools to transform traditional subject-based lectures into project-based, interactive simulations in order to improve the quality and efficiency of undergraduate education. The learning modules place students in the full context of running a construction project in a computer-generated simulation environment. The project uses the simulation module along with assessment tools to determine the effectiveness of the module for student learning and engagement.